CAREER: Wettability Engendered Templated Self-assembly (WETS) for Large Scale Multi-phasic Nanoparticle Fabrication

This Early Faculty Career Development (CAREER) Program award provides funding for the large scale, facile and cost-effective manufacturing of a range of different monodisperse, multi-phasic, organic, micro- and nanoparticles possessing virtually any size, shape, and chemistry using a novel and facile technique termed WETS (Wettability Engendered Templated Self-assembly). Although, different routes to fabricate bi-phasic (Janus) or tri-phasic particles have been explored in the recent past, a simple technique that allows for the manufacture of mono-disperse, multi-phasic particles of any desired chemical composition, with precise control over their geometries, has not been developed thus far. This project plans to use the WETS technique to fabricate a wide variety of such nanoparticles of complex shapes and sizes as small as 20 nm. A goal is to produce nanoparticles that are below 50 nm to benefit from the unique properties available at that scale. Other objectives include (i) fabrication of a prototype system for automated, rapid, large-scale manufacturing, (ii) studying the self-assembly of the synthesized multiphasic particles under a variety of environmental conditions, (iii) understanding the effects of nanoparticle addition on the rheological and thermal properties of different polymer melts, and (iv) testing the suitability of the novel biodegradable multiphasic nanoparticles for targeting and killing ovarian and breast cancer cells.

If successful, this work will allow for the manufacturing of a range of different multi-phasic organic nanoparticles on a very large scale that will impact a wide range of fields including, polymer nanocomposites, semiconductor technology, drug delivery, biotechnology, energy, chemical and biological detection. The outreach and educational activities of the project are motivated by the PI's commitment to increasing the number of underrepresented minorities in STEM disciplines. The activities include conducting a five week "Saturday Engineering Exploration" program for middle school students, multiple hands-on demonstrations for high-school students, recruiting of undergraduates and a graduate student in the research, and incorporating this work in different undergraduate and graduate courses.